Void Nucleation and Growth Due to Large Deformations in Nonlinear Solids

This project is to study void nucleation and growth in finitely deformed solids. Analytical methods within the framework of nonlinear elasticity and finite strain plasticity will be used. The results should be applicable to fracture considerations of solids propellants.